Planning Meeting for Industry/University Cooperative Research Center for Computer-Aided Devices for Diagnosis and Surgical Intervention Systems

9520887 Nnaji This award is providing funding for a planning grant proposal to study the feasibility of establishing an Industry/University Cooperative Research Center for Computer-Aided Devices for Diagnosis and Surgical Intervention Systems at the University of Massachusetts at Amherst. Medical imaging diagnosis and surgical intervention systems are common technologies for doctors. Today, there is no integrated imaging technologies that can present both the bone and soft tissue structure in three dimensions. Medical industries have shown a great interests in the development of intelligent imaging systems that can provide more realistic, three-dimensional presentations of organs, segments of organs or groups of organs. In a typical plastic surgery, doctors normally perform the operations manually. When a skin graft or flap is necessary for reconstruction of a damaged area, the surgeon must estimate the contour, area, and volume of the tissue required to ensure success of the reconstruction. CAD/CAM and Robotics technologies developed by engineers and scientists are very useful tools to develop the next generation surgical intervention system. CAD/CAM technology based on geometric reasoning that can be employed to estimate precise dimensions of damaged areas and match skin and tissue portions to be extracted from another part of the body. Robotics technology can be integrated in controlling and sensing the surgical operations adaptively. Research projects proposed for industrial members consideration for the envisioned Center are; 1) a Surgical Virtual Reality Machine, 2) A Sensor Equipment Scalpel, 3) Computer Aided Medical Imager (CAM Imager), 4) Spine Curvature Analyzer Using Laser, 5) Automated Burn Debridement, 6) Automated Congential Birthmark Treatment, 7) Recreation of Exact Duplicate Tissue Defects, 8) Automation Tissue Expansion, 9) Planner for Burn Reconstruction, 10) Tissue Engineering, 11) Charge-Coupled Device (CCD) application in Small - Field Digital Mammography, 12) Radiologist's Diagnostic Aid in Detection of Microcalcification Precursors of Breast Cancer, 13) Digital Mammographic Cassette, 14) Digital Breast Specimen Radiography for Improved Biopsy, and 15) Prototype of a Stereoscopic Mammography System. The Principal Investigator/Center Director is a recognized authority in his field and has assembled an interdisciplinary research team of researchers from the University of Massachusetts at Amherst and the Brigham and Woman's Hospital (a teaching affiliate of Harvard Medical School). A planning meeting with interested companies was held on January 20, 1995. The Program Manager recommends the University of Massachusetts at Amherst be awarded $10,000 for one year to conduct a planning activity.